Stanford Advanced Gravitational-Wave Laser Interferometer Program

Investigators associated with the Galileo Project will perform research leading to the development of advanced interferometric receivers of gravitational radiation. The research is intended to be useful eventually for advanced detectors to be used at the Laser Interferometer Gravitational-Wave Observatory currently under construction. Three areas will be emphasized: 1) table-top interferometer studies; 2) high power laser development and laser noise reduction; and 3) suspension systems, thermal noise and interferometer control.